SBIR Phase II: Electrostatic Self-Assembly Processes for Fabrication of MEMS Materials and Devices

This Small Business Innovation Research (SBIR) Phase II project will develop sensor, actuator, and micro-electromechanical system (MEMS) products based on electrostatically self-assembled piezoelectric and electrostrictive polymer thin films. Phase I found that an electrostatic self-assembly (ESA) process may be used to synthesize piezoelectric and electrostrictive materials with large transduction coefficients from a variety of dipolar molecular materials. This indicates an ability to replace poled polymer and conventional ceramic transducer materials in numerous sensor and actuator devices and produce benefits in simplified processing, cost savings and improved performance. In addition, the ability to select patterns and release portions of ESA-processed multilayer films allows the formation of MEMS structures, and thereby a new approach to surface micromachining. Phase II will optimize the ESA synthesis process in manufacture of sensors, actuators, and MEMS products and demonstrate ESA thin-film based devices, including polymer MEMS.

New ESA-processed piezoelectric and electrostrictive thin film materials will have widespread potential commercial applications in sensor and actuator devices used for instrumentation and controls.